Conference: Rutgers Symplectic Summer School 2026-2028

Rutgers Symplectic Summer School 2026 will take place at Rutgers University in New Brunswick, New Jersey, from August 17–21, 2026. Building on the success of the first two editions of the summer school, the conference will bring together graduate students, postdoctoral researchers, and faculty working in symplectic geometry and related areas of mathematics for a week-long program consisting of minicourses, research lectures, and collaborative interactions. Symplectic geometry is a branch of mathematics that grew out of the mathematical study of motion and classical mechanics and now plays an important role in modern geometry, dynamical systems, and mathematical physics, including areas connected to quantum theory. The program is designed to provide advanced training for young researchers while also fostering communication across neighboring areas such as topology, geometry, and mathematical physics. By creating opportunities for mentoring, professional development, and broad scientific exchange, the conference aims to strengthen the research community and support the next generation of mathematicians. Website: https://sites.google.com/view/rsss2026/home

The Rutgers Symplectic Summer School is intended to establish a recurring meeting focused on current developments in symplectic geometry and its interactions with topology, algebraic geometry, and gauge theory. The 2026 edition will feature several minicourse series delivered by leading researchers together with research talks highlighting recent advances in the field, especially the arithmetic feature of symplectic geometry. A central goal of the program is to provide graduate students and early-career researchers with accessible introductions to active research areas while promoting collaboration among participants from different institutions and backgrounds. The award will support participant travel and related activities for the 2026 edition of the summer school.